GLOBE: Learning Links for Professional Development

This project will maintain and enhance the GLOBE teacher's guide in print, on the Web and on CD-ROM. The teacher's guide is a nearly 1,000 page document containing detailed instructions for setting up study sites, collecting data, and implementing math and science learning in the classroom. In addition, two teacher's enhancement guides will be developed for elementary and middle school teachers who participate in the GLOBE program. One guide will help teachers accomplish the Inquiry and Personal and Social components of the National Science Education Standards, and the other will help teachers develop their student's literacy and language arts through participation in GLOBE.